2002 ACM MobiCom Student Travel Support; Atlanta, GA; September 23-26, 2002

This award will support approximately 16 graduate students to attend the ACM SIGMOBILE International Conference on Mobile Computing and Networking (MobiCom 2002) to be held in Atlanta, Georgia in September 23-26, 2002. This is a premier networking conference on mobility and data management and services in wireless environments.